RI: Principle-Driven Embodied Vision: Autonomous Radiance Manifold Exploration for Functional Affordance Discovery

Intelligent embodied agents, such as robots, need to understand what objects can be used for, not just what they are called. This is difficult in everyday environments where objects are cluttered, partly hidden, unfamiliar, or useful in ways that are not obvious from a single view. A robot asked to find something that can “cut” or “scoop” may need multiple views before deciding which object or object part is appropriate. Current artificial intelligence systems are often passive in this setting: they make predictions from available images, but do not have a principled way to recognize when functional evidence is incomplete or to choose additional views that improve functional understanding. This project develops new foundations for embodied vision, enabling an intelligent agent to build a task-aware model of a scene, identify gaps in its functional understanding, and select sensing actions that improve its interpretation of object function. The project will support more reliable object retrieval and robotic manipulation in partially observed environments. It will also contribute to education and workforce development through student research opportunities, course modules on active perception and embodied artificial intelligence, open benchmarks, shared software, and community-building activities.

This project develops a principle-driven framework for active embodied vision based on autonomous radiance manifold exploration and functional affordance discovery. The specific research objectives are four-fold. First, the project will develop a persistent three-dimensional scene model that integrates geometry, appearance, semantic information, and functional object properties as an agent observes a scene from multiple viewpoints. Second, the project will develop methods for detecting incomplete or ambiguous functional evidence and selecting physically feasible sensing actions that help the agent decide when and where to look next. Third, the project will develop methods for reasoning about object and part function using affordance properties such as rigidity, sharpness, containment, supportability, and graspability, enabling functional affordance discovery beyond object labels. Finally, the project will evaluate these capabilities in active functional object retrieval and active mobile manipulation, where an agent must inspect a scene, identify the object or object part that affords a requested function, and provide grounded information for robotic action. The expected outcome is a set of algorithms, benchmarks, and software for intelligent embodied agents that build and explore task-aware scene models to acquire the evidence needed for robust functional understanding in partially observed scenes.